DCL: NSF INCLUDES: Supporting a Collective Impact Approach from the Bottom Up

The NSF INCLUDES program supports models, networks, partnerships and research to ensure the broadening participation in STEM of women, members of racial and ethnic groups that have been historically underrepresented, persons of low socio-economic
status, and people with disabilities.

The Algebra Project, in partnership with the Young People's Project, will convene a conference on inclusion in science, technology, engineering and mathematics(STEM) higher education in support of the National Science Foundation's Inclusion across the Nation of Communities of Learners of Underrepresented Discoverers in Engineering and Science (NSF INCLUDES) initiative. The conference will examine a critical question: What roles and structures are needed for a mini-backbone organization in order to scale a "bottom up" model of social change into an organized, full scale collective impact model? Additionally, the conference will develop participants' capacity to link action on the various design challenges, and backbone structures, to future actions that meet the needs of a potential
Alliance on this Broadening Participation Challenge and others facing similar challenges.

Five pre-conference design teams will focus on key components to improve education of students from underrepresented and disadvantaged populations over a four-month period prior to the convening of the stakeholders in St. Louis, Missouri in 2017.